Asymptotic Geometric Analysis: Matrices, Operators and Noncommutative Phenomena

This project involves continued research on the geometric,
probabilistic and combinatorial aspects of functional analysis and
convexity theory, with particular attention to noncommutative objects and
phenomena. While most of the problems considered in the project have
motivation in other fields of mathematical sciences, they are typically
expressed in the language of local or finite dimensional geometry of Banach
spaces and/or analyzed using the methods prevalent in that area. Sample
research topics include: entropy of linear operators and duality of such
entropy, structural properties of high-dimensional convex bodies, various
analytic and geometric questions related to random matrices, some problems
in the "local" operator theory, Gaussian correlation of convex sets,
concentration phenomenon in the noncommutative context and some geometric
questions related to free and quantum information theories.

On an elementary level, Analysis is a study of functions, or
relationships between quantities and the parameters on which they depend.
As it happens, very many naturally appearing relationships are linear or
at least convex. Thus, a good understanding of convex functions and,
consequently, of convex sets is a prerequisite for understanding those
relationships. The number of free parameters in the underlying problem can
often be related to the dimension of sets in the corresponding mathematical
model. Since real-life problems usually do depend on very many parameters,
the high-dimensional setting is of particular interest. This is exactly
the domain of Asymptotic Geometric Analysis, which studies quantitative
properties of convex sets as the dimension goes to infinity. It
constitutes a fertile middle ground between the classical Functional
Analysis and the classical Geometry. Functional Analysis is usually
concerned with the infinite-dimensional setting (which frequently is an
idealization of a very large dimension), but it often provides only
qualitative information. On the other hand, Geometry typically yields
very precise information for a specific not-too-large dimension. For the
last two decades or so the asymptotic theory has been quite successful in
identifying and exploiting "approximate" symmetries of various problems
that escaped the earlier "too qualitative" or "too rigid" methods. (This
led, among others, to the discovery of many links to Computer Science.)
Finally, to explain our interest in noncommutativity we point out that it
simply reflects the fact that the final outcome of a process may depend on
the order of operations involved; the best known, but by far not the only
manifestation of that principle is quantum mechanics.